Collaborative Research: Integrated Thermochronological & Structural Investigation of the Saudi Arabian Red Sea Rift Margin:Implications for the Rupturing of Continental Lithosphere

The PIs will undertake a structural and thermo-chronological study of the Saudi Arabian Red Sea margin as a part of the MARGINS "Rupture of the Continental Lithosphere" initiative. This margin offers an exceptional opportunity to study the processes associated with continental rifting and how extensional strain is distributed in space and time. The PIs will employ apatite fission-track and (U-Th)/He thermo-chronology and structural mapping in the study area to achieve their objectives. The study will contribute to a more comprehensive understanding of the Red Sea rift and will form a part of the overall geological/geophysical work planned in this area under the MARGINS program. A close collaboration with the Saudi Geological Survey is envisaged.